The Genetic Control of Developmental Decisions

Studies of the genetic mechanisms controlling developmental commitments during embryogenesis are among the most active and significant in biomedical research. The powerful methodological approaches possible with Drosophila have shown that clusters of homeotic genes function to establish developmental fate. Recent exciting results indicate that mammals have genes with recognizable homology which are expressed in domains paralleling those of the insect homeotic genes. Although the further developmental and molecular characterization of these mammalian genes is a fascinating prospect, progress towards understanding their precise roles will ultimately be limited by the difficulty of isolating and studying mutations. The proposed project will focus on the homeotic genes of the red flour beetle (Tribolium castenum), an insect offering the possibility of integrated genetic, developmental and molecular studies with a resolution similar to that possible with Drosophila, but which is evolutionarily well diverged from flies and shows many interesting differences. Available balancers and deficiencies will allow the identification by saturation mutagenesis of the developmentally significant genes in the portion of the single homeotic complex of Tribolium corresponding to the Drosophila ANT-C, and their mutant syndromes will be described. Portions of several homeotic genes have already been molecularly cloned from a genomic library, and embryonic cDNA and genomic YAC libraries will also be screened. After these experiments have isolated the remaining genes and correlated them with the genetic map, further studies will determine their organization as well as spatial and temporal patterns of expression. Such an integrated approach will enable studies of the interactions of these homeotic genes with one another and with genes up and downstream in this developmental pathway. Even in a research area as active as the evolution and function of homeotic genes, the methodological advantages of Tribolium will generate unique insights into the regulation of developmental fate.